CONACyT: Solving Visibility-Based Mobile Robotics Tasks Using Minimal Representations

This project is about international collaboration between U.S. and Mexico. The work focuses on development of mobile robotic systems capable of performing sophisticated visibility-based tasks with minimal sensing requirements. The goal is to construct algorithms and control laws that use information directly from the robot sensors, such that the task at hand would be carried out without the need for elaborate measurements that are usually required.